NEDG: A Universal Approach to Channel-Adaptive Resource Allocation and Scheduling for Wireless OFDM Networks

Providing each node in a multihop wireless network with one or
more multi-channel radios offers a promising avenue for improving
the networking performance. Recently, the impact of multiple channels
and radios on network throughput has been extensively studied. But
little is known about their impact on communication latency, which
is an important performance metric for a broad class of time-critical
applications such as emergency response and disaster recovery. While
it is of no doubt that multiple channels and radios hold potentials
of reducing the communication latency, what really matters is how
much benefit can be realized by specific algorithms. This research
conducts comprehensive algorithmic studies of minimizing the
communication latency by utilizing multiple channels and radios.
The algorithms developed in this research can be applied directly
to support real-time applications in multihop wireless networks.
The theoretical analysis of the performance against the number of
channels and/or the number of radios can also provide guidance to
industries on cost-effective design of multihop wireless networks.

This research focuses on the communication schedules for four
primitive communication tasks which are involved in almost all
applications: broadcasting, aggregation, gathering, and beaconing.
The problem of seeking a shortest communication schedule for each
of these four tasks is NP-hard. The investigators develop
constant-approximation algorithms for them and analyze the impact
of the number of channels and the number of radios on the latencies
of the constructed communication schedules. This research is of
interest to a number of research communities, and may serve as a
basis for interesting future projects on multi-channel multi-radio
multihop wireless networks. Both student training and curriculum
development are integrated into this research.